Explorations in Constructive Analytic Geometry

The purpose of this Small Grants Exploratory Research (SGER) project is to determine the feasibility of combining tools from (discrete) computational geometry and (continuous) analytic computations using theory of R-functions. Specific tasks to be accomplished during this exploratory study are: 1. development and implementation of algorithms for automatic construction of (implicit) real-valued functions for objects represented by Boolean and/or boundary representations; 2. conduct experiments to verify computational and numerical properties of constructed functions predicted by the theory. The results of these explorations will be used to define and undertake a significantly larger scale effort to develop a computational environment for modeling and solving engineering and scientific problems. The unique feature of such an environment will be seamless integration of geometric and analytic computations.